Engineering Research Equipment Grant: Laser Extensometer

This research equipment award is made to partially support the purchase of a laser extensometer which will be used to examine mixed-mode crack initiation and propagation along bimaterial interfaces. Prior work has established that the nature of the material interfaces dramatically changes the toughness of bond.